Coordination of NSF Research Program for the 1985 Mexico Earthquake

Through ths project, the Earthquake Engineering Research Institute (EERI) will help coordinate the research activities funded by the National Science Foundation (NSF) on the Mexico earthquake of September 19, 1985. The coordination will facilitate a focused research effort by promptly disseminating relevant information, including research in progress, to all the research participants; by suggesting additional areas that participants may investigate to enhance the overall research program; by acting as a clearinghouse for information and interaction between the participants; and by providing a broad-based perspective of the overall research effort.